CI-TEAM Demo: Project-based, Collaborative Learning with Google Earth and Wikis (GooWi)

This two-year demonstration project brings together University of Montana researchers, K-12 teachers of the Montana Geographic Alliance, and a Montana small business to develop and test a framework for supporting authentic, user-centered, project-based, collaborative learning in middle school classrooms. The overarching theme of the activity is cultural and environmental change in North America over the past several centuries, using initial European contact as a temporal baseline for student-driven projects. These explorations covered virtually all coastal and interior portions of the U.S. and represent the first written histories of landscapes, natural history, climatic conditions, and Native American culture. Although not all left behind written accounts that survive today, paleoecological, paleoclimate, and archeological records, together with Native American oral histories, can be used to develop a rich picture of past conditions.

Using these data, students may compare and contrast information from independent proxies and various cultural perspectives to develop deep and robust understandings of natural and human induced changes on the landscape over historic time, and their implications for modern society.
A goal of the project is to introduce students to a specific suite of transferrable 21st century cyber-enabled workforce skills as early as possible in their academic careers. Students will learn to use cyber-based tools to conduct scholarly research, collaborate effectively with peers, and communicate professionally with their intended audience.

Intellectual merit: This project addresses a significant need in cyberinfrastructure education for our 21st century workforce by providing an expandable and sustainable way to introduce students to cyber-based skills that typically are not employed until the college level, despite the fact that a number of studies illustrate that younger students are very capable of acquiring them. The idea is that an earlier introduction to the appropriate, ethical and professional use of cyber-based research and communication tools will help students develop habits of mind that will increase their success in future endeavors. Learning to work effectively in groups, including conducting peer review in a mutually respectful manner, is also an important 21st century workforce skill that requires training and practice. Learning to successfully employ a variety of techniques including content organization, writing, layout, and graphic design in web-based presentations, as well as using virtual globes to analyze and display geospatial and geo-temporal data, should be both challenging and empowering for students. The project should reveal to students the power of cyber-based tools and resources for constructing new knowledge, and help them view themselves as creators, rather than simply consumers, of information.

Broader impacts: Through its connection to the national Geographic Alliance Network, the project will pave the way for a national and even international effort in geographic education.
This effort would be realized by individual teachers in place-based, user-centered projects of local or cultural significance, covering a broad array of content domains. The open architecture of the learning activity and its exclusive dependence on free, online tools and resources will make it accessible by virtually any teacher. The four case studies developed through this project will be used to encourage new teachers to participate and to inform them of best practices for various situations. Our vision is to create a self-sustaining community of practice in which teachers and students experiment, inspire, and inform their peers.